SANDALS-TEAMS: Summer at Notre Dame: Academic and Leadership Skills-Technology, Engineering and Mathematics, Science

9353855 Harnett The College of Notre Dame of Maryland will sponsor an eight week summer residential Young Scholars project for 40 students entering the 12th grade. SANDALS-TEAMS (Summer at Notre Dame Academic and Leadership Skills- Technology,Engineering and Mathematics, Science) offers five weeks of academic course work including biochemistry/biotechnology, microbiology,chemistry, environmental science, mathematics, computer applications and history and ethics of science. In addition to course work a three week internship enables students to be a part of ongoing projects and gain first hand experiences with scientific processes. Career and ethics of science explorations as well as monthly follow up meetings complete the project activities. ***